GOALI: Optical Tomography Measurements of High Voltage Conduction and Breakdown Phenomena in Dielectrics

9820515
Zahn

The proposed research is a GOALI industry-university collaborative project
between MIT and EPRI for the continued analytical, computational, and
experimental study using optical tomography measurements of high voltage
insulation, conduction, prebreakdown and breakdown characteristics in
dielectrics. The methodology uses electric field induced birefringence
(Kerr effect) with an improved sensitive optical measurement system and a
new advanced mathematical formulation that allows calculation of electric
field magnitude and direction in any electrode geometry from optical
intensity measurements. Because the physics of high voltage charge
injection and transport, prebreakdown and electrical breakdown are not known
for most metal/dielectric systems, the electric field distribution cannot be
calculated from knowledge of system geometries alone. Optical measurements
provide a direct approach to determining electrical constitutive laws and
learning the physics of the electrical breakdown process and so offers a
research methodology for major advances in increasing the breakdown strength
of dielectric systems.

The proposed continuing research program involves both graduate and
undergraduate students together with EPRI personnel to try to further
understand charge injection, conduction, aging, degradation, prebreakdown
and breakdown mechanisms in high field stressed gaseous, liquid, and solid
dielectrics using new modern optical, electronic, and computer
instrumentation to give "eyes" inside materials to see prebreakdown and
breakdown field and charge distributions that could not be measured before.
Specific proposed work tasks are 1) Extend and complete the mathematical
formulation of the Kerr effect where the applied electric field magnitude
and direction change along the light path for any three dimensional
geometry; develop computational algorithms to convert measured optical
signals to electric field distributions; and to verify analysis with
experiments; 2) Develop a computer interfaced camera system with an optical
array detector distributed over an area to automate sensitive Kerr
measurement data acquisition and processing without mechanical motion; 3)
Perform sensitive Kerr electro-optic field and charge mapping measurements
in a well controlled and monitored test cell for various liquid/solid
material combinations in the volume and within the electrical double layer
near interfaces as a function of DC voltage amplitude and polarity, AC
voltage amplitude and frequency, direction of interface with respect to
applied electric field, temperature, moisture, conductivity, and
concentration of moisture and trace additives; 4) Extend the sensitive Kerr
effect technique and perform measurements for weakly birefringent
dielectrics in pulsed, ramped, and other time varying applied electric
fields; 5) Relate the results of the modelling, optical measurements, and
dielectrometry measurements to a better understanding of high voltage
conduction, prebreakdown and breakdown phenomena in dielectrics in order to
reliably extend the operation of high voltage apparatus to higher voltages;
and 6) Construct a compact optical sensor measurement system that with the
help of EPRI personnel and contractors will be applied to electric field and
space charge measurements in an operating transformer.
***